Particulate Matter Airborne Sampling Inlet Experiment

In many respect, scientist understand the behavior of atmospheric gases much better than that of aerosols. Homogeneous gas-phase chemistry is inherently simpler than that which involves more than one phase. Yet the heterogeneous chemistry of aerosols is central to understanding several of the important problems in atmospheric chemistry. Some of man's activities may have an impact on climate because they create aerosols which alter the Earth's albedo. These aerosols may also affect the tendency of water vapor to condense in clouds, altering their droplet size-distribution, spatial extent, tendency to precipitate, and optical properties. Natural cloudiness may be controlled in part by the availability of aerosols in clean regions. One of the factors which limits our understanding of aerosol chemistry is the difficulty of sampling them from airborne platforms. Although many airborne experiments have measured aerosol species in the atmospheric, there are potential sampling problems with the inlets used to bring air samples into collection systems. Inertial and electrophoretic processes in sampling inlets have the potential to remove some aerosols upstream of a filter, for instance. Losses can exceed 50% in some cases. In the Particulate matter Airborne Sampling INlet experiment aerosols will be sampled simultaneously with a variety of intake systems aboard NCAR's Electra, to determine which parameters (flow Reynolds number, Stokes number, redius of curvature, surface coating, aerosol diameter, etc.) control these losses. The ultimate goal is the development of the most artifact-free sampling system possible for collecting aerosols from aircraft.